Quantile Regression, Smoothing, and Robust Inference

Classical statistical and econometric methods underpin almost all empirical and some theoretical research in economics. But these methods are subject to restrictive assumptions that often do not hold in real-world economic problems. Applied estimates using classical statistical tools are sometimes very sensitive to small changes in the assumptions about underlying economic relationships or to a few "outlier" observations. Robust inference is a very active field of research in statistics and econometrics that provides tools for applied economic research that do not easily breakdown because they are relatively insensitive to outlier observations or changes in assumptions. The contribution of this project comes in three areas of robust inference: (1) conditional quantile methods for parametric linear models, (2) nonparametric estimation of conditional quantile functions, and (3) global versus local measures of robustness for statistical procedures. This project extends work on regression rank-scores to a broad range of new estimation and testing problems. Regression rank- scores defined from the dual solution to the regression quantile problem provide a natural foundation for rank based methods of estimation and inference for the linear model. Applications to testing for heteroscedasticity and to time-series models are proposed. A new method for forming confidence and prediction intervals for quantile regression is introduced, and investigation of its efficacy is proposed. Efficient computer algorithms for application of regression quantile and regression rank-score methods are developed. Several approaches to nonparametric estimation of conditional quantile functions are studied. Computation is carried out within the linear programming framework of ordinary regression quantiles; moreover the solution for various bandwidths can be formulated as a parametric linear programming problem and is thus amenable to efficient solution. Other approaches may be based on weighted regression quantile estimates and provide a general kernel-based approach. Substantial theoretical, methodological, and applied work concerning these approaches is carried out. Further investigation of estimation and test breakdown is proposed. The project develops versions of regression rank-score tests with improved breakdown properties. The research investigates the general concept of breakdown, its relationship with the tail behavior of estimation procedures, and general methods of combining high efficiency with high breakdown robustness.